Program in Holomorphic Dynamics, Laminations and Hyperbolic Geometry

Abstract

Award: DMS-0555429
Principal Investigator: Mikhail Lyubich

The main focus of the program will be the interaction between
3-dimensional hyperbolic geometry and holomorphic dynamics. These two
fields have flourished through the past 30 years, with numerous
fruitful exchanges that have enriched both of them. Both fields have
been heavily influenced by major conjectures; the Thurston Geometrization
Program in hyperbolic geometry and investigation of the intricate
structure of the Mandelbrot set in complex dynamics. Recent years have
witnessed many exciting breakthroughs in the both fields. The program
provides an opportunity to consolidate these recent achievements and to
discuss further directions they open. It will also touch on a number of
active related fields: holomorphic dynamics in several variables,
laminations and foliations, partially hyperbolic dynamics, and
Teichmuller flow.

The program will take place at the Fields Institute, which is mounting an
intensive semester of activity in this area during the period January-May
2006. A number of graduate courses, mini-courses and seminars, as well
as three Workshops on various themes of the program will be carried
out during that time. They will be largely directed towards young
researches who will have an opportunity to learn about most recent
events in the field. The NSF funding will be used to support American
mathematicians who wish to participate in this activity, principally
young mathematicians without other sources of support.

The program Web site is
http://www.fields.toronto.edu/programs/scientific/05-06/holodynamics/